The Subconvexity Problem

Prime numbers are of fundamental importance in mathematics, as every number can be uniquely written as a product of primes. A mysterious feature of prime numbers is that the statistics of how they are distributed is similar to what a random sequence of numbers would produce. This is despite the fact that whether a number is prime or not is in no respect random. L-functions are mathematical objects that conjecturally allow us to understand this statistical feature of primes and other objects from the theory of numbers. This project investigates an important conjecture about L-functions, known as the subconvexity problem, which states that the values taken by these L-functions are smaller than expected. If true, it would be an important step in unlocking the statistical information that L- functions contain.

The aim of this award is to make progress on the subconvexity problem for L-functions in higher rank, and to prove subconvexity for as wide a range of automorphic forms as possible. The project will focus on the groups U(n+1) x U(n) and GL(n+1) x GL(n). The PI will approach the problem using arithmetic amplification, representation theory, and ideas from microlocal analysis. A key role will be played by microlocal lifts. The methods used will not depend on the rank of the group in an essential way.